Increasing Student Experiences in Data Management and Query Processing

This project enhances undergraduate student skills in the related areas of application design/development and data management. A computer system upgrade creates a relational distributed database management system (dbms) capability between two independent nodes running a mix of operating systems and network protocols. The areas of dbms performance and tuning can be studied in both the node-specific and distributed cases. The configuration builds an existing instructional base to a point where it meets students needs. The project is especially important at a time when dbms technology is a top priority in product development. It also addresses the increasingly recognized connection between dbms and expert systems. The award is being matched by an equal amount from the principal investigator`s institution.